Presidential Young Investigator Award: Instabilities in Laser Systems

Lasers exhibit a variety of dynamic outputs such as relaxation oscillations, persistent oscillations, mode locking, Q switching, and chaotic behavior. This time evolution encompasses synergetic behavior as well as a deterministic dynamical approach to ergodic motion. Of particular importance are the homogeneously broadened systems such as the optically pumped molecular lasers and the ruby laser. These laser systems may be modeled by Lorenz equations in the mean field limit and therefore offer the possibility of studying the transition to chaos in optical systems where data acquisition is rapid and non-intrusive. The route to chaos in the CH;i3F and CH;i3OH lasers will be studied as well as the yet unresolved behavior of the ruby spiking instability. In addition, the behavior of coupled cavities will be examined with emphasis on diode laser systems for swept single mode operation.